Division Algebras and Invariant Fields

SALTMAN 9970213

Professor Saltman proposes to study questions concerning
division algebras and invariant fields. In the area of division
algebras, he will study questions that all involve ways of describing
these objects. One series of questions concern special, so called
semidirect product, division algebras with
arbitrary ground field. He is asking whether they are
even more special cyclic algebras. Another series of questions
in involve considering general division algebras with special
ground fields, in this case function fields of curves over p-adics,
and asking whether they are cyclic. The second area of study of
Professor Saltman, invariant fields, will also have two strands.
The first series of questions concern trying to use Galois cohomology
to show certain of these fields are nonrational. The second
series of questions involve simply studying these invariant fields
and, for example, investigating division algebras with these
invariant fields as center.

Division algebras are simple objects that have been studied
for over a hundred years. The basic idea is to consider
finite dimensional vector spaces with a product that is well behaved.
That is, the product is associative and, as in the real numbers,
every nonzero element has an inverse, but the product is
noncommutative (i.e. a times b is not b times a).
It turns out the these objects embody deep properties
of their centers which are the more familiar ``fields'' like the
rationals or the reals. Describing all division algebras with
a fixed center is really saying something deep about the arithmetic
of this center. There are ``generic'' or very general division
algebras whose properties in some ways reflect the properties
of all division algebras. Their centers are, however, hard to understand
so called invariant fields. One can directly study these invariant fields
and thereby understand more about division algebras.
One can use, as tools in this study, a whole array of
mathematics including algebraic geometry, Galois cohomology,
and algebraic K-theory.